Connection to CSUnet/Internet

9417516 Smith This project connects Southern California college to the Internet through the California State University network (CSUnet) over a 56 kbps line. Faculty and students benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.